Acquisition of a Microcomputer and Graphics System

A microVax computer, a network system, a graphics terminal and other computational equipment will be acquired to support molecular and structural biology research. The projects to be supported include the molecular structure of helical viruses, the folding of nucleic acids, the analysis of nucleic acid sequence information, whole, the instrumentation will enhance research relevant to biotechnology and enhance our understanding of cellular processes.